Mathematical Sciences: Problems in Population Genetics

Theoretical models and DNA sequence analysis will be used to study gene conversion and other problems in genetics. A particular family of statistical tests that can detect specific instances of gene conversion as well as cryptic patterns of gene conversion will be studied. One aim will be to develop parametric models that would allow gene conversion and point mutation rates to be jointly estimated from DNA sequence data. A second major goal will be to apply these techniques to study gene conversion in the Alu family of repeated sequences, which has about 500,000 repeats in the human genome and constitutes about 5 per cent of total human DNA. The subfamily structure and relationships of the Alu repeats will also be studied, both for their own sake and for the extent to which family heterogeneity may affect statistical tests for gene conversion. The spontaneous mutation of genetic material is a major contributor both to evolution and to genetic disease. In many particular cases this mutation, rather than being purely random, has been shown to be the result of a conversion or copying process from nearby similar genetic material. The first part of the proposal will develop tests for detecting a cryptic pattern of gene conversion that may appear purely random, and to estimate the relative importance of the two mutational processes at a particular genetic loci. A significant pattern of gene conversion may imply a similar nearby genetic locus. Alu sequences are not only interesting for what they can tell about the evolution and structure of genetic material, they also have been used as tags of pieces of human DNA that have been cloned into bacterial plasmids or yeast chromosomes. If nearby Alu sequences show a pattern of gene conversion under certain circumstances, this can help to piece together these clones in the construction of the human genomic map.